Dissertation Research: The Ethnoecology of Maize Variety Choice Under Intensification

Intensification of agricultural production is a common outcome of development in third world countries. There is a commonly held notion that agricultural intensification in traditional societies leads to a decrease in the types and varieties of plants grown and a concomitant loss of knowledge about those previously grown. However, almost no research has been conducted to determine under which set of circumstances this assumption is valid. During this project, the researcher will test the assumption that intensification leads to simplification and loss of knowledge by peasant farmers. He will study peasant maize farmers in Chiapas, Mexico to see if modern intensive agricultural methods are used to maintain diversity in resource poor areas in the highlands and lowlands. Special attention will be given to identifying crucial variables in the decision making process of individual farmers. This project will contribute to our understanding of the way resource poor farmers adapt their agricultural production to their environment as they intensify. In addition, the data from this project will help policy makers understand the potential and limitations of efforts aimed at increasing agricultural productivity in Mexico.